Biochemistry of Hemoglobins and Oxygen Transport

Work will continue on four systems currently under study. Initially, Detailed structure function analysis of adult bullfrog hemoglobin in which two different components associate upon deoxygenation to form a trimmer of tetrameres of very low oxygen affinity will be carried out, then extended to other selected amphibians and birds. This association appears physiologically significant for oxygen binding. Secondly, the structural organization of the globin genes of the bullfrog will be determined at various stages of development. As the tadpole, then frog, develop the sites of hemoglobin synthesis shifts posing an interesting problem. Thirdly, the earthworms, lumbricus terrestris, has a giant extracellular hemoglobin having four major chains whose sequences are known. Soon the crystal structure will be available. Attempts will be made to determine the specific functional roles of individual subunits and their role in assembly. The essential role of calcium in the assembly will be determined. Finally, closely related deep sea fishes exhibit large Bohr affects, and the nature of the molecular groups involved will be investigated. This investigator has been enterprising in extending comparative respiratory physiology to a great variety of invertebrate species, some quite rare, and has helped one to understand how creatures can live in very unfavorable surroundings.